Enveloping Algebras, Differential Operators and Quantum Groups

This proposal is for research into three areas of current interest in
noncommutative algebra. First the PI plans to study the enveloping
algebra of a classical simple Lie superalgebra. Specifically he is
interested in primitive ideals and problems concerning the center of the
enveloping algebra. Secondly the PI intends to investigate differential
operators on toric varieties and maps between toric varieties arising from
refinements of fans. Finally the PI proposes the study of certain finite
dimensional Hopf algebras arising from quantized enveloping algebras of
classical Lie superalgebras. The methods to be used come from
representation theory and algebraic geometry.

This research is concerned with some particular aspects of modern
abstract algebra, as an area of mathematics.
In recent years a number of algebraic constructions have been increasingly
important in Physics. These include Lie superalgebras and quantum groups,
two constructions which will be investigated in this proposal. It is a
widely held belief that a better understanding of the algebraic structure
of these objects could lead to further significant advances in Physics.